A New Sequence Method for Low Cost Multiple Access Communications

III-9321942 Wu Consultare Group Incorporated "A New Sequence Method for Low Cost Multiple Access Communications" This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This Phase II project involves research in three areas related to new sequence generation in multiple access applications: theoretical, practical and complementary. The theoretical research plan consists of the generalization of the {D}-sequence minimum distance properties, the availability of mutually orthogonal Latin squares, derivation of sequence length with respect to {D}-set parameters, and the applicability of general symbol matrix size. The practical research plan addresses the computer programs to be established for simulation and evaluations of Phase I tasks. The complementary research plan proposes the derivation and evaluation criteria of {D}-sequence detection in interference environments, the compatibility of sequence transmission through ATM cells, and the error coding and ciphering problems and solutions for {D}-sequences to be used with multimedia applications. ***